Second International Symposium on Non-Metallic (FRP) Reinforcement for Concrete Structures

9509774 Dolan This project is a travel grand for academic researchers to participate in the Second International Conference for Fiber Reinforced Plastic Reinforcement for concrete, at Ghent University, Ghent, Belgium August 23-25, 1995. ***